Operation of the Nuclear Structure Research Laboratory

This grant if for support of the operation of the University of Rochester's Nuclear Structure Research Laboratory for the calendar years 1993-94. The research exploits heavy-ion beams from the upgraded MP tandem Van de Graaff accelerator and a powerful arsenal of equipment such as the Recoil Mass Spectrometer, split-pole magnetic spectrometer, gamma-ray detector array and accelerator mass spectrometry system, for a broad program in nuclear science. The investigations of nuclear structure at high spin and isospin involve measurements of nuclear shapes, pairing correlations, spectroscopy of normal and superdeformed states, and nuclear moments. The nuclear reaction programs involve studies of breakup, pre-equilibrium processes, and transfer in heavy-ion reactions. A study of electron- positron emission in heavy-ion collisions is another major thrust of the program. The accelerator mass spectrometry program encompasses a wide range of science with important applications to environmental science.